SGER: Ecotoxicological and functional genomic responses of Killifish in the aftermath of Hurricane Katrina

0553523 Whitehead The overarching goal of this proposed research is to evaluate the effects of Hurricane Katrina fallout on the health of marsh fishes, and to test whether environmental chemical concentrations are predictive of functional genomic responses and whether functional genomic responses are predictive of physiological responses. This will be achieved by coupling functional genomic tools with physiological measures of stress and toxicity, and by integrating observations collected in the field with controlled laboratory experiments. Biological data will eventually be coupled with analytical chemistry to test whether concentrations of chemicals associated with the aftermath of Hurricane Katrina are predictive of biological responses, and to examine the timecourse of recovery in the Lake Ponchatrain ecosystem